MRI: Acquisition of a GC-MS System in Support of Research Activities in the Chemistry Department at the University of Scranton

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of Scranton will acquire a gas chromatograph with mass spectrometric detection (GC/MS). This equipment will enhance research in a number of areas including a) microwave accelerated preparation and reactions of tricyclic and tetracyclicazepines using room temperature ionic liquids as solvents; b) studies on the presence of polychlorinated biphenyls and other organic compounds in the Lackawanna River; c) development of environmentally-suited methods for chemical synthesis and processing; and d) determination of polyphenols in common fruits. The GC/MS will also be used in advanced laboratory courses and by faculty at other universities in the area.

Gas chromatograph with mass spectrometric detection (GC-MS) is an extremely powerful technique used for the separation and analysis of complex mixtures. This instrument will have an impact in a number of areas, in particular environmental and synthetic organic chemistry.